Efficient Query Processing for Data Integration

This goal of this research project is to develop efficient query optimization and query execution methods for data integration systems. Data integration systems provide uniform access to a multitude of autonomous data sources within an enterprise or on the World-Wide Web. Unlike in traditional database applications, a query execution engine for data integration must be able to cope with limited availability of statistics on the underlying data and with unexpected network delays during query execution. The approach consists of developing an adaptive query execution engine for data integration. Two kinds of adaptivity are considered: (1) interleaving of query optimization and execution, and (2) developing novel query execution operators that are tailored to data integration. In the first part, algorithms for determining appropriate points at which to suspend query optimization are considered. For the second part, novel join implementations are considered (e.g., the double-pipelined join), as well as operators that are needed only in the data integration context (e.g., dynamic collectors performing unions over large collections of sources). In addition, issues involving the integration of semi-structured data (e.g., XML) are also addressed. The results of the research include the implemented Tukwila data integration system, which will be made available to other researchers in the field. The impact of the research will be to remove the performance bottleneck that hinders fielding data integration systems in the WWW and enterprise contexts. We will be able to process data integration queries involving 10's of MB of data coming from external sources in real time.
http://data.cs.washington.edu/integration/tukwila